CAREER: Fluorescent, Biofunctionalized Conjugated Polymer Nanoparticles for Advanced Labeling and Sensing Applications

Professor Jason McNeill of Clemson University is supported by the Analytical and Surface Chemistry Program to develop novel fluorescent nanoparticles for use in biological detection and imaging. The strategy is to develop core-shell nanoparticle sensors with a highly fluorescent polymer core and a shell that will provide a surface for the attachment of biomolecules such as proteins, antibodies, and DNA. The sensors will be tested using advanced spectroscopy and microscopy techniques. Advanced applications such as monitoring molecular interactions within cells will also be investigated. The educational plan details a well-integrated program to incorporate this research into the education and training of graduate and undergraduate students. The project will result in the dissemination of information about nanomaterials and nanoscience and engineering to the general public.

Many tests for disease and pathogens involve the use of fluorescence-based detection schemes. This project will result in fluorescent, polymer-based nanoparticles that are brighter than conventional fluorescent dyes and that will lead to improvements in the speed and sensitivity of fluorescence-based detection of disease and disease microbes.